An Undergraduate Computational Laboratory for Meteorology and Astronomy

Astronomy (11) This project updates computers in two laboratory courses in astronomy and meteorology in the Department of Physics and Astronomy for use by nonscience students. About a quarter of the college's enrollment are using the computing facilities in this project. The project is adapting material from the internet to access scientific and technological databases worldwide, for example, meteorological and astronomical images. In addition, the project is using the CLEA labs for astronomy and adapting labs for use with an existing remote-controlled telescope. The project has several objectives. First, students gain valuable experience with computers. Second, students use data from the latest science and technology. Third, computer projects properly integrated into a laboratory are a good mechanism to increase the interest of non-science students.